Computerization of a Unique Undergraduate Physiology Laboratory

In a physiology course covering both animals and plants, laboratory methods for collecting and recording data are being greatly improved. A series of experiments are being developed to give students the opportunity to collect and analyze data with state-of-the-art transducers and instrumentation, and a computerized data acquisition system. In addition, computer simulations of other physiological events are being used, allowing for practical lab experience, realistic experimental design, and data analysis in a short period of time and at low cost. These experiences will better prepare students for advanced individual research projects, internships, further education, and jobs. The course is unique in that it combines fundamental principles of cell, animal, and plant physiology. The college will contribute an amount equal to the award.